Mathematics - An Exhibit on Ideas and Applications

The Franklin Institute Science Museum, a major American Science Center serving more than 700,000 individuals annually, proposes to create a 3,700 square foot permanent exhibition that will promote public interest in and understanding of the concepts and principles of mathematics in concrete, tangible form. The exhibition will consist of five clusters of hands-on devices, interactive computer programs, models, and text on the themes of Geometry; Symmetry; Chance, Probability and Randomness; Series, Sequences and Limits; and "Modern Math"--Fractals, Knots and Braids and Topology. Museum staff will utilize several mathematicians as advisors and design participants and will develop adjunct educational materials for use by teachers, students, and family members. They will disseminate exhibition techniques and content by providing six collaborating museums with selected copies of exhibit devices and hardware for their use in developing temporary or permanent mathematics exhibits. Staff of the six museums will join advisors for a design conference during exhibition planning, and will provide evaluation reports on their use of the exhibit materials. Knowledge of mathematics is not only necessary for everyday life; it is central to public understanding of science and engineering, and a key to continued participation in science and engineering, and a key to continued participation in science education in high school and college. Increasing national interest improvement in the mathematical ability of americans at all levels, pre-college and college, make this proposed exhibition particularly timely.